Postdoctoral Fellowship: MSPRF: Arithmetic Deformation Quantization

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Joshua Mundinger is “Arithmetic Deformation Quantization”. The host institution for the fellowship is the University of Wisconsin in Madison and the sponsoring scientist is Dima Arinkin.